Interfacial Structure and Properties

This research examines grain boundary structure and its relationship to grain boundary behavior. Grain boundary structure is observed in random polycrystalline non-cubic materials by transmission electron microscopy with temperature as a principal variable. Energies of grain boundaries are estimated from these observations and related to the annealing temperature. Diffusion-induced grain boundary motion is studied in bicrystals to relate this behavior to grain boundary structure and the underlying mechanism of the phenomenon.